Transmitter Modulation of Neuronal Excitability Via Second Messengers

Agonists invoke a variety of intracellular messengers to transduce their signals. To discern the relevant molecules in the mediation of a specific cellular function, complimentary biochemical and functional assays are required. This proposal outlines experiments to combine these approaches to elucidate the mechanism of transmitter modulation of neuronal excitability via second messengers. To this end, the present application involves two simple systems where the electrophysiological aspects of modulation are well described. Sensory neurons were chosen as a model for modulation of Ca++ conductance by amines, such as norepinephrine. Sympathetic neurons were chosen to examine the mechanism of cholinergic and peptidergic modulation of K+ conductance. The goal of these studies is to determine which second messenger systems are employed in the modulation of these different voltage gated conductances. The studies share a common approach: we will examine several key substrates, products and enzyme activities along the metabolic pathways and then compare the findings with biophysical studies involving selective activation or inhibition at critical junctures in the phosphoinositide and arachidonate cascades. The proposed studies also share a common goal: to elucidate the mechanism(s) underlying modulation of voltage-gated conductances critical to the control of neuronal excitability and transmitter secretion.